The Well-Founded Semantics For Knowledge Bases

This is the first year of two year continuing award. Properties of the well-founded semantics for (possibly) unstratified knowledge bases are investigated for the purpose of implementing this semantics on a wide class of practical logic programs and expert systems. This project continues development of algorithms for automatically recognizing sets of rules that can be guaranteed to terminate with the appropriate execution strategy. The project also studies methods by which the compiler can optimize execution by discovery of determinacy in the rules. In the presence of determinacy, the correct choice among alternatives can always be made immediately, making backtracking unnecessary. The study focuses on the use of mode information and inductive type definitions. This project continues implementation of prototype analyzers, compilers, and interpreters, building upon and extending algorithms and software developed during prior research. A major difficulty today in building large-scale rule-based systems is choosing effective control strategies for the various subsets of rules, and current systems place virtually all of this burden on the programmer. An inferior choice can easily produce a nonterminating or extremely inefficient system. Progress in this research will facilitate the development of tools that automatically choose effective control strategies in most cases, and advise the programmer of unclear cases.